58th Symposium: "DNA & Chromosomes" conference will be held from June 2-9, 1993, Cold Spring Harbor, NY

It has been 40 years since the discovery of the double helix structure of DNA and it is appropriate for the 58th Cold Spring Harbor Symposium of Quantitative Biology to have as its theme "DNA and Chromosomes. The meeting will be held at Cold Spring Harbor Laboratories from June 2,-June 9, 1993, bringing together approximately 350-450 scientists from around the world. The meeting will bring together many of the leading investigators as well as a significant number of younger scientists in a setting conducive to intense discussion and interactions. %%% The research discussed at this meeting will have an impact on all areas of biology in many different organisms and experimental systems. Understanding the role of chromosome structure on DNA metabolism is at a critical stage and this meeting should help to catalyze further advances.